Presidential Award for Excellence in Science, Mathematics, and Engineering Mentoring (PAESMEM)

HRD 03-28648
Dr. Calvin Mackie is a tenured Associate Professor of Mechanical Engineering who has an extensive body of mentoring and outreach activities for pre-college, undergraduate, and graduate populations. His program works to encourage and inspire individuals to personal and academic achievement. He communicates through high-energy education and motivational presentations.